Planning Grant: Science and Technology Research Center for Soft X-Ray Science

This proposal from the University of Oregon requests funds to enhance the planning of a Science and Technology Research Center in Soft X-Ray Science. This multiinstitutional and multidisciplinary center will include participants with expertise in physical, chemical, material, and biological sciences. The Center's scientific focus will be on the microscopic characterization of heterogeneous systems. The Center proposes to use bright new sources of synchrotron radiation in the soft x-ray range to open new fields of research or to expand existing ones to allow qualitatively different types of phenomena in heterogeneous systems to be studied. Fields tentatively included are: spectroscopy and microscopy, soft x-ray fluorescence, and time-resolved spectroscopy. These funds will enable the institution to complete assimilation of a group of qualified personnel, identify the most important scientific issues, plan the administrative and scientific structure of the Center, and determine which instrumentation will best serve the needs of the Center. The proposed center, which will be at the frontier of a large and expanding interdisciplinary field of research, will also serve users from universities, industry, and international laboratories. The goal of the Center is to make a major contribution in the area of soft x-ray science.